Design of a Multiprocessor System for LISP

Recent speculation into the nature of future computing systems has focused attention on VLSI, artificial intelligence, and parallel processing. This research focuses on the design of VLSI building blocks for multiprocessor systems specifically for LISP, the premier language of AI (artificial intelligence) research today. The initial system organization is based on the SMALL LISP architecture, where processing functionality is partitioned across two processing components--an evaluation processor and a list processor--whose operation can be partly overlapped. A detailed design of system components based on this partition is being developed. VLSI layouts are being done to get insight into timing and the feasibility of the approach. Using this information for guidelines, a software simulator is being developed to simulate component performance as well as the effectiveness of the system organization. This research is expected to impact computer architecture in several ways. It should provide insight into the feasibility of extending the Decoupled Access/Execute type of architecture to multi-processing systems. It could provide an early preview of possible future generation LISP systems. Finally, this functional composition approach could provide another approach to the design of computer architectures for other similar languages.